U.S.-Germany Cooperative Study of Low Multipolarity MagneticTransitions in Selected Nuclei

This award supports Lawrence Fagg and several others of the Catholic University of America (CUA) to collaborate with Achim Richter and other physicists at the superconducting electron accelerator facility of the Institute of Nuclear Physics of the Technische Hochschule in Darmstadt, Germany. Several years ago the CUA group designed and built what was then the only low energy 180 degree electron scattering system in the world. It was installed at the Microtron Facility of the University of Illinois at Urbana-Champaign and operated successfully to obtain data on ten nuclei ranging from Carbon-13 to Gallium-71. However, in 1990 the Microtron Facility was shut down, terminating a very productive line of nuclear research. The CUA group arranged to ship the scattering system to Darmstadt, Germany for installation and use there. The support provided by this award will enable the CUA group to travel to Germany to complete the installation and testing of the scattering system over the next few months. Then they will be able to begin a series of collaborative experiments using the system to study low multipolarity magnetic transitions in several selected nuclei, including Helium-3, Neon-21, and Krypton-86. The system they built has a unique capability for investigating such transitions as well as ground-state magnetic structure.